U.S.-Mexico Cooperative Research: Patterns of Habitat Use by Birds in a Disturbed Landscape in Mexico

9722452 Blake This U.S.-Mexico Collaborative Program award will support Dr. John Blake and Ms. Catherine Graham of the University of Missouri-Saint Louis, in a research collaboration with Dr. Sergio Guevara, of the Institute of Ecology in Xalapa, Mexico. The researchers aim to understand the effects of forest fragmentation on patterns of habitat selection and movement by fruit-eating birds. This understanding is important because birds disseminate the seeds of many tropical forest plants. For this study, the researchers will examine the relative influence of patch-level (vegetation structure, fruit abundance) and landscape-level factors (habitat placement in the landscape) on patterns of habitat use by studying bird use of three common habitat types in a landscape dominated by pasture in the Los Tuxtlas region of Veracruz, Mexico. The research will have three basic objectives: 1) determination of use patterns of distinct habitat types; 2) development of a series of hypotheses (matrix models) to predict bird movement; and 3) validation and refinement of these models through comparison with an independently derived data set on movement patterns. The Mexican counterparts at the Institute of Ecology in Xalapa have been studying the role of isolated fig species in promoting seed dispersal by fruit-eating vertebrates in Los Tuxtlas. Data collected in this study will complement the work of these collaborators by examining the roles of patches and riparian corridors in patterns of habitat selection and movement by fruit-eating birds. ***